Workshop on Mechanisms for Tropospheric Effects of Solar Variability and the Quasi-Biennial Oscillation

This grant will support a workshop entitled "Mechanisms for Tropospheric Effects of Solar Variability and the Quasi-Biennial Oscillation" to be held on June 20,21, 1989 in Boulder, Colorado preceding the annual CEDAR* meeting. The workshop objectives are to search for and evaluate hypotheses for mechanisms that might account for the solar variability/quasi-biennial oscillation/weather correlation as first discussed by Labizke (Free University, W. Berlin) and Van Loon (NCAR). This topic is part of the CEDAR and STEP** initiatives. The workshop format will have invited tutorials covering the possible range of topics that will be important for understanding and evaluating possible mechanisms and poster papers that will present recent data analysis and model results. The outcome of the workshop will be a narrowing of the most likely scenario for mechanisms and a set of recommendations for future research. * Coupled Energetics and Dynamics of Atmospheric Regions ** Solar Terrestrial Energy Program